REU: Summer Undergraduate Fellowships in Oceanography

9322054 KINCAID This renewal request for an REU SITE at the University of Rhode Island's Graduate School of Oceanography and Ocean Engineering Department. The program is designed to attract talented students into research careers in oceanography, with special emphasis on physical oceanography. It will acquaint the students with the excitement and opportunities of academic research and encourage them to pursue graduate studies and a career in ocean sciences.